NMR Spectrometry for an Improved Undergraduate Chemistry Program

The quality of the chemistry program at Rosemont College has been enhanced by the recent acquisition of a nuclear magnetic resonance (NMR) spectrometer. The availability of this instrument is providing undergraduate students a broader experience with chemical phenomena and a realization of the potential of NMR as a powerful tool for further investigation. Implementation of these goals is accomplished in three steps: (a) introduction of the basic concepts of NMR spectrometry through experimentation followed by qualitative application to organic structure determination; (b) remodeling of the advanced laboratory sequence to include a series of comparative experimental projects using NMR and other complimentary techniques, and (c) development of applications to undergraduate research projects.